Mathematical Sciences: Phenomena of Metric Topology and Their Applications

9500875 Dranishnikov The investigator is going to study the topology of geodesic spaces and their visual boundaries. The geodesic spaces which are the universal covering spaces for finitely presented groups are of primary interest. Essentialy this project is an attempt to find groups whose boundary has dimensions of different kinds that disagree. Such a group for integral cohomological and covering dimensions would give a counter-example to some form of the Novikov conjecture. First he plans to construct and investigate groups whose boundaries have rational cohomological dimension and covering dimension that are different. The phenomenon first was observed by Bestvina-Mess. While cohomology groups of the sphere at infinity have a relation to the Novikov conjecture, cohomology groups of the tangent sphere of a geodesic space are relevant to the Hilbert-Smith conjecture. These two spheres are connected by a map, called the geodesic contruction map. It turns out that the geodesic contruction map can raise dimension even in the case of Coxeter groups. That phenomenon is relevant to the old problem in Group Theory: Does geometric dimension of a group coincide with the cohomological dimension? The corresponding problem for topological spaces was solved negatively by the investigator. One of the most basic of topological properties is the notion of dimension. For very common spaces such as spheres and planes, the dimension is clear. However, when one attempts to formulate a general definition that will apply to a much wider class of spaces, some of them quite complicated, the "obvious" notion of dimension turns out to be elusive. In fact some spaces, the so-called fractal spaces, have a natural dimension that is not even a whole number. One is left with several alternative definitions, all of which agree for uncomplicated spaces, but which may differ in general. To understand the notion of dimension fully, one should understand when the differen t definitions can be expected to agree and when they may not. The investigator is exploring several of the outstanding conjectures and problems along these lines. ***